Self-Assembling Redox-Mediators

CBET - 1263970
Self-Assembling Redox-Mediators
Abbott, Nicholas L. University of Wisconsin-Madison

Intellectual Merit: The research seeks to broadly advance the molecular level design of redox active surfactants that have the potential to serve as self assembling redoxmediators in electrochemical and photoelectrochemical systems. The first goal of the research isfocused on surfactants that incorporate.The redox active group ferrocene and seeks to develop a fundamental understanding of how changes in the oxidation state of the ferrocene impacts. The self assembly of the redox active surfactants at surfaces (e.g.,electrode surfaces). To this end,surface plasmon resonance,atomic force microscopy and potential step chronocoulometry will be combined to test three key hypotheses regarding oxidation state dependent self assembly of ferrocenyl amphiphiles on chemically functionalized solid surfaces Fundamental insights into The equilibriumand dynamic properties of surfactants at surfaces will emerge from the research A second key goal of The research is to understand how the oxidation state dependent self assembly of redox active surfactants at surfaces(as elucidated in goal) impacts the forward and backward rates of oxidation of these surfactants at electrodes Building from preliminary data indicating that incorporation of redox probes into self assembling molecules can substantially change. The rates of forward and backward electrochemical transformations,research conducted under the second goal will seek to establish principles based on self assembling redox mediators that can be used to minimize undesirable recombination or back reactions in solar energy driven devices for photovoltaics and water splitting Such back reactions(e.g.,reduction of an oxidized mediator at a photoanode) play a central role in determining. The efficiency of both dye sensitized solar cells and photolytic processes for water splitting Cyclic voltammetry,potential step chronocoulometry and darkcurrent measurements will be combined with knowledge emerging from the first research goal to
elucidate physical processes based on self assembly that can be exploited to regulate the rates ofoxidation/reduction of redox surfactants

Broader Impacts: The ability to transform the amphiphilicity of molecules at defined rates and at
specified locations on surfaces has the potential to broadly impact surfactant science by enabling new types of experiments that will advance our understanding of the dynamic and equilibrium properties of surfactant systems. In particular measurement of rates of oxidation and reduction ofredox active surfactants at surfaces (electrodes)will provide fundamental insights into the dynamics of complex surfactant systems at surfaces technological potential of the knowledge to be generated by this research is also substantial Specifically,identification of redox mediators that are kinetically fast yet exhibit low rates of recombination at electrodes remains an unresolved challenge that,if solved, would advance the efficiency of a range of light driven technologies. These solar technologies offer the potential to provide sustainable sources of electrical energy as well as solar fuels(e.g.as obtained from splitting of water) both lowering reliance of carbon based energy sources and emissions of CO2 More broadly. The ability to electrochemically control the amphiphilicity of molecules will enable control of surfactant based phenomena in a rangeof technological contexts including separations drug delivery energy harvesting materials synthesis and design of biomolecular interfaces.
The research described in this project also provides exciting opportunities for the education of graduate
and undergraduate students through projects that combine surfactant science colloid chemistry interface science and electrochemical engineering.These students will also be presented with the unusual opportunity of being involved in two international collaborations (with collaborators in Israel and Japan)